RUI: Composite Layered Intrusions in the Bays-of-Maine Igneous Complex

The principal investigator will study two igneous intrusions within the Bays-of-Maine complex, using field, microscopic, and analytical techniques. The main goals of the study are to understand the processes of hybridization, the physical and chemical interactions between basaltic replenishemnts and underlying silicic cumulates, and the effect of basalt replenishment on magmatic compositional history.